CRI: Field Programmable Gate Array (FPGA) based Hypercomputing Acceleration Platform for Bioinformatics

The PI will conduct research on Field Programmable Gate Arrays (FPGAs) including partitioning algorithms among several FPGAs, computers and memories; developing hardware efficient algorithms; and exploring interactive visualization methods. The research will be applied to bioinformatics. The PI has experience with using FPGAs for global sequence comparison. They will consider other bioinformatics algorithms such as simulated annealing for task partitioning, BLAST and FASTA for sequences for applications of FPGAs. The project is working with the North Carolina bioinformatics program. New university initiatives in bioinformatics including a new $35 million center at UNC Charlotte will provide a setting to maximize impact.
The research will be integrated into education programs and courses at the university; the PI will use team-based projects and problem based learning to enhance education. The PI plans a WWW site to share results and process data from other universities through a JAVA interface.